Presidential Young Investigators Award: Combinatorial Optimization Problems

Two major research thrusts will be pursued: optimization of algebraic systems and dynamic vehicle routing. Within optimization of algebraic systems, the focus will be on the "matroid parity" problem. The major goal of this work is algorithmic and conceptual and is an elegant generalization of a number of important problems in combinatorial optimization. In the area of dynamic vehicle routing, the goal is to develop effective heuristic procedures for solving the emergency scheduling problem. The methodologies will include interactive scheduling and hierarchical decomposition techniques. It is expected that this research will extend the "state-of-the-art" in dynamic scheduling and routing problems by drawing on research developments from mathematical programming, combinatorial optimization, control theory, queueing theory, and artificial intelligence.